CAREER: New Paradigms in Fundamental Physics

Recent discoveries have exhibited surprising connections among the theories which describe a number of different areas of high energy physics, most notably `quantum field theories`, which describe elementary particle physics, and `superstring theories`, which describe quantum gravity together with the other fundamental forces. Superstring theories are strong candidates for a complete description of all observed physical phenomena. The research undertaken is a program of theoretical investigations into the properties of non-perturbative superstring theories, the newly discovered `duality symmetries` which interrelate them, the role of quantum field theory, and the structure and definition of the theory which underlies them all, called `M-theory`. This research is part of a program crucial to our eventual understanding of the foundations of space, time and matter at the most fundamental physical level.